Proposal Processing, Data Entry Support, and Special Assistance for the Multilingual Information Access and Management Initiative and Human Computer Interaction Program

This award is to Allied Technology Group for Proposal Processing, Data Entry Support, and Special Assistance for the Multilingual Information Access and Management Initiative and the Human Computer Interaction Program.